Global Riemannian Geometry

Abstract

Award: DMS-9971045
Principal Investigator: Peter Petersen

The PI proposes to investigate the relationship between geometric
and topological invariants of Riemannian manifolds. The study can
be divided up into at least two parts. There are general
finiteness results where one simply obtains some bounds on
topological invariants from certain bounds on the geometry. The
PI proposes to work on several finiteness phenomena for manifolds
with integral bounds for the curvature. The isospectral
compactness problem for 3-manifolds will also be
investigated. There are more specific situations where one can
compute very specific topological invariants from certain
specific geometric information. Under this heading one also
studies various pinching phenomena, where the goal is to
understand the specific topological type of a Riemannian manifold
with restrictions on some of its geometric invariants. The PI
proposes to study Gauss-Bonnet type theorems for noncompact
4-manifolds and their relationship with the study of Euclidean
quantum gravity. This is well studied in the setting of compact
manifolds, but much less understood for noncompact manifolds. It
is also proposed to investigate various pinching phenomena both
for curvature and eigenvalues. Finally the PI will undertake a
study of the Gromoll-Meyer sphere and try to determine whether it
admits metrics with positive sectional curvature.

The main goal of the PI's research centers on understanding the
relationship between on one hand geometric quantities such as
size, volume and bending and on the other hand the complexity of
the objects. Complexity is often measured by how many holes the
object has, a jungle gym is more complex than a doughnut which in
turn is more complex than a ball. Depending on how good ones
geometric information is one can obtain very general bounds on
the complexity, but it is also possible to sometimes completely
determine what the object is. For instance, only a ball has the
property that it bends in the same manner everywhere. There are
also very interesting relationships between the geometric
quantities themselves. For instance, any object that bends in the
same direction everywhere is bounded in size and volume. Such
results also have counterparts in Einstein's theory of general
relativity. There such results are related to the study of the
Big Bang, black holes, and the ultimate fate on the universe. One
technical item the PI studies is the possibility that ones
measurement of bending does not have to be very precise. In other
words, slightly vision impaired people's ideas of bending are as
good as those of people with perfect eye sight.